Continued Research on the Jurassic Vertebrate Fauna from the Beardmore Glacier Region of Antarctica

Abstract

This award supports preparation and study of fossil dinosaurs discovered on Mt. Kirkpatrick, Antarctica, during the 2003-04 field season. The 4,000 pounds of bone bearing matrix to be processed includes new pieces of Cryolophosaurus, a 22 foot long meat eating theropod, as well as a new unnamed sauropod dinosaur and other yet to be identified taxa. This project advances our understanding of dinosaur evolution and adaptation at the beginning of the reign of the dinosaurs, the Late Triassic and Early Jurassic. This period is poorly understood due to lack of fossils, which makes these fossils from Antarctica particularly unique. Also, since these fossils are from high paleolatitudes they will contribute to our understanding of past climates and the physiologic adaptations of dinosaurs to lengthy periods of darkness.

The broader impacts include outreach to the general public through museum exhibits and presentations.